SBIR Phase I: Rething Recommendations

This Small Business Innovation Research (SBIR) Phase I project addresses the
problem of learning predictive models of individual choice behavior using sparse
information on the behavior of any single individual. The intellectual merit of the
project is developing a novel parsimonious view of this problem by modeling
choice behavior as a distribution over permutations of alternatives, and making
this view implementable at scale. A unit of data in this paradigm is a single
comparison between two alternatives. Data of this sort can be derived in a variety
of contexts ranging from product reviews to transaction data. While being a
parsimonious modeling viewpoint, exact computation, or even representing such
models is intractable. The project will focus on developing approximate solutions
that, in the spirit of recent advances in high-dimensional statistics, exploit the
potential of sparse approximations to such models. Given the vast quantities of
data available to build such models it will be important for the algorithms
developed to be amenable to parallelization in a manner reminiscent of the
Map/Reduce computational paradigm. The algorithms developed will fit this
paradigm with key algorithmic steps decomposing across data collected for a
single individual. In summary, this project will develop a massively parallelizable
approach to modeling individual choice behavior using unstructured data from a
variety of sources.

The broader impact/commercial potential of this project rests in enabling the
emerging, all pervasive transition from 'search' to 'discovery'. This transition can
be witnessed in sectors ranging from e-commerce to offline retail to matching
impressions to advertisers on demand side platforms. The key stumbling block in
this transition is the seeming requirement to build attribute rich models for a given
context as opposed to a black box approach. The approach taken in this project
is of the latter variety. As a concrete example, the task of merchandising requires
an offline retailer to decide on the right assortment of products to carry in
segments ranging from tooth paste to clothing; the approach here will power such
decision making in an entirely data driven fashion. In a different direction, serving
ads based on models that capture a surfer's preferences across the various silos
of products and topics on the web can be enabled at scale and incredible
granularity using the approach here. The level of granularity made possible by
the approach here cannot be achieved with 'parametric' attribute driven
approaches. In summary, the tools developed in this project have the potential to
do for `discovery' what the PageRank algorithm did for search.